Linear and Nonlinear Analysis on Complete Kahler Manifolds

ABSTRACT DMS - 0203023.
PI: Lei Ni

The principle investigator proposes to study the interplay between the
geometry and the analysis on complete Kaehler manifolds. The focus will be
linear and nonlinear analysis on such manifolds. The main tool is solving
the linear equation, such as the Poisson equation and Poincare-Lelong
equation, and the nonlinear equations such as the Kaehle-Ricci flow. The
goal is to understand the space of holomorphic functions (plurisubharmonic
functions), the interplay between the geometry and the function theory and
applying the results to the uniformization of complete Kaehler manifolds
with nonnegative curvature.

The manifold is the space where every physical event happens. The
global analysis on manifolds studies the overall properties of the
manifolds by piecing together the local information. Kaehler manifolds are
the basic block in the universe model according to the
string theory. The proposed study
has close connection with the theory of general relativity and string
theory. The nonlinear differential equations studied in the proposal have
applications in the study of the structure of complicated molecules,
liquid-gas boundary, and even the large scale networks.